AF:CIF:Small:Computational structural biology: Reconstruction and understanding for heterogeneous biological macro molecular complexes based on electron microscopy images

Macro molecular complexes that act as nano-scale machines provide the
function of biological systems. Understanding the geometry and functioning of
the complex as a machine, for instance, how do the various parts move relative
to each other, is a central goal of biology. Cryo electron microscopy provides
one noisy image of each of many (e.g., 100,000) instances of the complex. The
objective of this research is to compute a statistical description of the machine
from the images and then compute a mechanical model of the machine from
the statistical description. Understanding how existing complexes function is
central to engineering changes in their function. Achieving changes would have
broad impact, for instance, in cancer treatment (inhibiting complexes that pro-
tect tumor cells by pumping chemotherapy drugs out of tumor cells) and in
improving the efficiency of complexes involved in the production of biofuels.
Further impacts include the training of two Ph.D. students who will come from a diverse pool of students.

The complex in question will be described as a weighted sum of basis functions with random
Gaussian weights. A maximum likelihood estimator is used to estimate the
mean and covariance of the weights. The estimator is computed by an expecta-
tion maximization algorithm which requires substantial computation due to the
unknown projection directions of the images. A "spring and mass" mechanical
model in thermodynamic equilibrium predicts the mean and covariance. By
comparing the predictions of the mechanical model to the estimated mean and
covariance by Kullback-Leibler divergence, the parameters in the mechanical
model are estimated.